CT-ISG: A Framework for Trustworthy Cooperative P2P Applications

The emergence of peer-to-peer (P2P) systems has enabled rapid
deployment of Internet-scale distributed applications over the
Internet. This project focuses on cooperative peer-to-peer systems, in
which peer nodes form a ""community of common interest"" with shared
goals and mutual benefits. Services that can be supported by
cooperative P2P systems cover the gamut of networked
applications and distributed computing. Since the value and utility
of a cooperative P2P system is in the
service it offers to its users, ensuring its correct and efficient
operation despite the existence of potentially untrustworthy nodes is
of utmost importance.

The goal of this project is to understand and address the challenges
and problems in building large-scale, robust cooperative P2P systems
that are trustworthy, accountable and secure. The project includes
developing implementations of several innovative concepts and
mechanisms: efficient and correct ""Distributed Hash Table"" routing,
randomly rotating ""witness"" nodes, and virtualized protocol
evaluation.